Wavelet Frames and Bases, and Fourth Order "thin film" Eigenproblems

Proposal Number: DMS-0140481
PI: Richard Laugesen

ABSTRACT

Wavelet expansions are a mathematical tool that enable
functions and data to be analyzed at multiple scales and
locations simultaneously. The investigator seeks first to
characterize all (non-tight) wavelet frames - these frames
permit more flexibility than the widely-used orthonormal
wavelets. Then he aims to characterize and find examples
of wavelets whose dilation matrices expand in some directions
but not in others. Another goal is to prove that the
"Mexican hat" wavelet family is dense in all Lebesgue spaces,
so that this family can be used to approximate data in more
than just the mean-square sense. On a different topic, the
investigator will also pursue questions about the fundamental
model equations that underlie motion of thin fluid films. The
proposed research aims to mathematically determine the
stability of steady states of these equations. In particular,
"droplet" steady states will be studied. The existence of such
stable steady states would signal the possibility of creating
a pattern in the film.

Wavelet theory draws on fundamental mathematics and on
engineering disciplines such as signal processing to create
tools for efficiently analyzing and storing information.
The two-way street between basic research and practical
applications has been particularly effective in recent years.
Abstract mathematical theories from harmonic analysis have
been transformed into large scale engineering solutions (for
example the FBI uses a wavelet compression technique to store
its fingerprint images), while engineering challenges continue
to stimulate fundamental research in mathematics. Many
questions about the mathematical equations of fluid flow are
famously difficult. In view of this difficulty, much research
has concentrated on special situations, such as a thin film of
fluid either sitting on or hanging from a flat surface. These
films arise in many industrial coating situations, such as the
manufacture of photographic film, or the coating of magnetic
disk drives. The mathematical understanding of these problems
became substantial only in the 1990s, and even now, much more
is known in one space dimension than in the physically relevant
case of two space dimensions, where this research will
concentrate.